Equipment Update for the Facility to Collect Scattered Polarized Light

ABSTRACT Dwight Look 9622050 Support was requested for an argon-ion laser to be used in anisotropic scattering experiments important in radiative heat transfer applications. Multidimensional experiments using latex particles suspended in distilled water would provide data for both optically thick and thin media. The grant was supported under the Research Equipement Grant Program.